High-Level Communication for Distributed Multimedia Applications

The project takes a new approach to simplifying the construction of distributed multimedia applications. The I/O abstractions put forth separate the description of the communication structures from the computational components of a system, such that software modules written in existing programming languages are integrated flexibly and dynamically. The logical connections among the data interfaces of independent software modules provide a uniform high-level view of communication for both discrete and continuous data. The high-level view of communication is not only intuitive for users, but it also offers a means to establish protection for data and applications and provides opportunities for low-level optimizations. The project develops the software support needed for implementing the I/O abstractions, and evaluates using applications in four domains: digital libraries, collaborative work, simu\-lation and medi\-cal imag\-ing. The Washington University's high speed ATM network is used as a testbed for the development work.